Modeling and Verification of Communication Protocols

In a communication network, protocols provide the services for reliable, timely, and efficient transfer of information among users that are distributed throughout the network. A model is developed for specifying and verifying large time-dependent and multi-function protocol systems and this model is applied to real-life network protocols. Included in this research are extensions to earlier work on projections and time-dependent modeling. The research objectives include the development of a model that can be easily and rigorously implemented by inexperienced programmers and have very simple semantics so that verification for logical correctness can be determined with a minimum of effort and notation.